Modulation of Immune Response by Environmental Light

IBN-9521484 McEachron, Donald L. Environmental light plays an important role in the generation of daily rhythms in body temperature and activity. However, the full spectrum of effects of light are just beginning to be realized. In the proposed studies the effect of light and variations in light cyclicity on immune function will be examined. In addition, light is known to manifest many of its effects by altering the secretion of the hormone, melatonin. The ability of this important hormone to modulate immune responses will also be investigated. The proposed studies may prove useful for examining the effect of light on living organisms. This proposal is appropriate for an SGER award because of the novelty of the research area. Successful completion of this research will open new vistas in understanding the interplay between the environment, brain and immune system. The implications of these studies in seasonal variations in disease prevention in natural ecosystems is of great significance.